Learning Mathematics and Physics Through Applications in Engineering -- EARLY ALERT INITIATIVE

Memphis State University seeks to provide a four-week commuter EAI Young Scholars Program in mathematics and physics for a group of highly promising African American entering 9th grade from the Memphis area. The program will provide 16 participants with research and career exploration experiences through classroom and laboratory activities, field trips, and interaction with various professionals in science and engineering fields. A major goal of the program is to stimulate career interest in mathematics and science through the use of algebra, geometry, trigonometry, and aspects of physics to examine specific laboratory and field problems.